Contribution to Page Charges for a Special IEEE Issue on Thermal Plasmas

9616654 A request has been made for $3,000 to help offset the costs of page charges for a special issue of the IEEE Journal to be devoted to high pressure arcs and high frequency thermal plasmas and to appear in April 1997. In particular this funding will help defray the publication costs for those potential contributors from the former Soviet Union (FSU) and in East European countries who are unable to come up with these page charges. It is anticipated that papers from these leading scientists will make an important contribution to our knowledge and technological base in this field and will facilitate cooperation between scientists of the FSU and East European countries with scientists in the USA.